Connection to NYSERNET (New York State Educational Research Network)

9521458 Hotaling The Keuka College requests support from NSF for a connection to the Internet through the NYSERNET regional network. NYSERNET is the regional network located in the state of New York that will provide operations and network information services. It will provide the Keuka College with a connection to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States The college needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the students, faculty and staff of the Keuka College.